Coordinated Introductory Courses for Computer Science and Mathematics Majors

Coordinated Introductory Courses for Computer Science and Mathematics Majors This project restructures and coordinates a common core of introductory courses for computer science and mathematics majors. The courses are Mathematical Foundations I and II and Algorithmic Computation I and II. The mathematics courses introduce abstract mathematical concepts from discrete mathematics, logic, and graph theory, and the computer science courses apply these concepts to the development of algorithms that can be implemented on a computer. The computer science courses rely on the functional and logical programming paradigms as a basis for direct application of mathematical concepts in algorithmic form. By stressing visualization, concrete examples, and practical applications in the laboratory, these courses make abstract concepts accessible to under-prepared students; New Mexico State University is recognized by the Department of Education as a Minority Institution. All four courses are required by computer science majors, and the mathematics majors are required to take all but the last computer science course, which is optional in their program.***//